Mathematical Sciences: Automorphic Forms, Geometry and Analysis; October 9-12, 1996; Princeton, New Jersey

9625420 Deligne It is almost thirty years since conjectures of Robert Langlands changed the direction of research on automorphic forms and representation theory. This award provides support dor a conference on the Langlands program. The objectives of the conference are (1) to bring the ideas of Langlands before a wide mathematical audience; (2) to describe recent developments in major areas of the Langlands program; (3) to attempt to anticipate future directions of work on the problems making up the Langlands' program. The Langlands program is part of number theory. Number theory is the study of the properties of the whole numbers and is the oldest branch of mathematics. From the beginning problems in number theory have furnished a driving force in creating new mathematics in other diverse parts of the discipline. The Langland's program is a general philosophy that connects number theory with calculus; it embodies the modern approach to the study of whole numbers. Modern number theory is very technical and deep, but it has had astonishing applications in areas like theoretical computer science and coding theory.